Curriculum Development Initiative in Cyber Trust (CDICT) at the University of Denver

This project creates a computer-security focused center for the state of Colorado, with the Denver metropolitan area serving as the commerce hub for the surrounding rocky mountain region. It takes the first step in establishing an information assurance program at the University of Denver (DU), with a two-to-three year goal of having DU designated as a Center of Academic Excellence in Information Assurance Education (CAE/IAE). The project develops new information security focused curricula, increases the number of graduates with emphasis on computer security, and creates degree programs with emphasis on security that are accessible to underrepresented groups, especially women.